International Travel Grant: Bio-Transport '98, June 8-12, 1998, Kusadasi, Turkey

9730958 Diller This grant provides travel support for US participants in an international symposium on heat and mass transfer in biological tissues. This conference will provide a forum to bring together scientists and engineers from around the world involved in bioheat and mass transfer research, for an in-depth discussion and exchange of the state-of-the-art of related theory, experiments, and applications. The topic of heat and mass transport in biological systems is an area of burgeoning interest from both the scientific and applications perspectives. Transport phenomena govern many processes in both biotechnology and bioengineering. The program includes technical sessions in a broad array of topics which includes: (1) heat and mass transport in tissue engineering processes, (2) energy based surgical modalities including; microwave, ultrasound, radio frequency, laser and cryosurgery, (3) thermally coupled phenomena in living systems including; laser tissue optics, hyperthermia cancer therapy, burn injury processes, and tissue and organ cryopreservation, (4) mass transport limited function in the design and operation of artificial organs, (5) measurement and modeling of the thermal influence of blood perfusion in living tissues; thermal methods to measure blood perfusion, (6) microscale and molecular heat and mass transport phenomena in biological systems, (7) design for commercial scale tissue processing protocols, and (8) temperature- triggered drug delivery in living tissues. Participation in this conference will be international and will include biomedical engineers, mechanical engineers, chemical engineers, biochemical engineers, medical scientists, biologists, chemists, and physicists. ***